Practical Robot Path Planning with Contact and Velocity Constraints

The goal of this work is to explore the fundamental properties of optimal paths
for robots subject to contact and velocity constraints, and to implement
practical path planners based on that exploration. This is a collaboration
to combine work on time-optimal paths with work on path planning
algorithms. The primary application is to plan time-optimal paths for a
differential drive mobile robot that navigates a known environment.
The planner will construct an explicit model of the configuration
space and will search for time-optimal collision-free paths. This
defines the goals for the theoretical work: to identify constraints on
the motions that reduce the complexity of the search. Optimality
and velocity constraints are both a source of such constraints. A better
understanding of time-optimal nonholonomic paths will lead to efficient
planning of efficient motions.